Mathematical Sciences: Analysis on Nilpotent Lie Groups

This Research Opportunities for Women Career Advancement Award will support Professor Ratcliff's work in nilpotent harmonic analysis. She will use and extend a symbolic calculus she has recently helped to develop for pseudodifferential operators on 3-step nilpotent Lie groups. She will continue her ongoing study of Gelfand pairs in the context of compact groups acting on nilpotent groups, and investigate discrete decompositions of distributions on the Heisenberg group.